Observational Laboratory in Developmental Psychology

Equipment necessary to start an observational laboratory in developmental psychology and to expand the range of student independent study projects to include observational research, both in the field and in the laboratory has been obtained. Recording equipment, video and audio, and hand-held data collectors for field research are essential for demonstrating current observational research methods for students. An eye-tracker is also an invaluable asset in the developmental laboratory to demonstrate to students an important approach to the study of the development of perceptual and cognitive processes in individuals.